A Flexible Explanation Facility for Advisory Systems

This proposal is concerned with the development of a computer system for tutoring college-level biology. While tutoring systems have been built for biology before, new capabilities: flexible instruction, model simulation, and visualization, are proposed. Flexible instruction will permit dynamic generation of instructional material that is appropriate for each teaching situation. Simulations of models of biological systems will explain and predict such systems' behavior. Visualization will dynamically illustrate these systems. Synergistically combining these capabilities, this tutoring system will allow students to ask questions, request clarification or elaboration, and inquisitively experiment.